NSF Young Investigator

Humans use their body to communicate with each other. Much of this communication is mediated by vision, however vision is not currently used in human-to-machine interfaces. If we could imitate nature and obtain good human-to-machine visual communication we could build convenient, portable and powerful interfaces. This technology would contribute immensely to industries such as entertainment, telecommunications, portable computing and security. Dr. Perona will study techniques for tracking and recognition aimed at building visual interfaces between humans and computers. His research will concentrate on three systems: the face, the hands, and the limbs, including head and body posture. In order to access the information conveyed by the limbs and the hand it is first necessary to locate them in potentially cluttered images and then to reconstruct their configuration in space and time. The face has to be detected, its 3D orientation computed, its features located and its deformation measured. Dr. Perona's research will accordingly concentrate on scene segmentation from motion flow and 3D motion, recursive estimation of the 3D motion of kinematic chains with partially known kinematics from monocular and stereoscopic sequences of perspective images, detection of complex objects (hands, face) in cluttered scenes, representation and estimation of nonrigid motions.